Using the Partitioning Principle to Control the Number of Incorrect Inferences

The investigator develops methods that control the
multiple comparison error rate called generalized
Familywise Error Rate (gFWER). Whereas control of
the traditional Familywise Error Rate (FWER)
guarantees with a high probability that no
incorrect inference in multiple comparison will be
made, control of gFWER guarantees with a high
probability that the number of incorrect inferences
in multiple comparison will be kept to no more than
a fixed number m. Thus control of gFWER is less
stringent than control of FWER, if m is greater
than zero. Controlling gFWER may be more
appropriate in some bioinformatics situations than
controlling the False Discovery Rate (FDR), which
is the expected proportion of false discoveries.
The investigator uses the generalized Partitioning
Principle to develop modeling-based methods
controlling gFWE. The generalized Partitioning
Principle makes specific use of the joint
distribution of test statistics to derived methods
more powerful than methods that ignore such
information.

The new methodologies the investigator develops can
have a broad impact in the area of bioinformatics.
For example, microarrays probing all human genes
can discover which genes are differentially
expressed in a disease situation. As a follow-up
study, SNP (single nucleotide polymorphism) chips
can be used to confirm which genes have mutations
causing increased susceptibility to the disease.
In such situations, the cost associated with
falsely rejecting true null hypotheses (of non-
differential expression of genes) is roughly
proportional to the number of incorrectly rejected
true null hypotheses. Controlling gFWER controls
such costs. In collaboration with genomic
researchers, the investigator is developing and
testing his gFWER-controlling multiple comparison
methods for microarray data analysis.